Remote Fiber-Optic Accelerometer System for Ocean Deployment

Remote, reliable accelerometers suitable for deployment on the ocean floor are needed for geophysical studies. In response to this need Optical Technologies, Inc. (OPTECH) is designing an all- optical, remote fiber-optic accelerometer system that requires no electrical conductors or connections in the water. The accelerometer system will provide significant benefits and features; including broad-band response, low maintenance, no electrical conductors/connections in the water, wide dynamic range, no electrical power required at the sensor, and remote sensing capability.